Development of the Undergraduate Biochemistry Laboratory

The Department of Chemistry and Physics at St. Mary's College is upgrading the biochemistry offerings in the curriculum. A major thrust is the development of a biochemistry laboratory which emphasizes both the basic concepts presented in the associated lectures, and introduces the student to the techniques commonly used in the discipline. The recent acquisition of a high speed centrifuge, two ultraviolet-visible (UV/VIS) spectrophotometers, electrophoretic equipment, a tissue homogenizer, and an oxygen electrode has allowed the laboratory content to be significantly upgraded. Innovative laboratory courses which provide exposure to a number of fundamental biochemical techniques are now available, affording students better opportunities to apply their knowledge of chemistry to biological systems.